Photonic Integrated Circuits and Devices

A three-year research program is awarded to develop monolithically integrated polarization-modulated lasers that can be modulated to ultra-high-frequencies and coupled lasers that can function as optical bistable elements for use as switches, memories, and logic circuits. A unique feature and basic theme of the proposed program is that the device concepts are tested and evaluated in the context of a fabrication approach that is suitable for large scale integration eventually. specific tasks include: a. To build an electro-optic TE-TM mode converter for integration with a semi-conductor laser to form a polarization-modulated laser; b. to demonstrate self and externally- controlled polarization modulation of semiconductor lasers in the 20 to 100 GHz range; c. to build coupled- semiconductor lasers to demonstrate two-mode bistability and to characterize the switching speed and switching energy of these devices; d. to develop optical gates and subsystems based upon monolithically integrable bistable semiconductor lasers; e. further improvement of chemically-assisted ion-beam etching (CAIBE) scheme for fabricating monolithically integrated optoelectronic devices and circuits.